Industry/University Cooperative Research Center for WirelessElectromagnetic Compatibility

ABSTRACT EEC-9714964 GRANT Wireless communication has raised many questions concerning electrical and human capability with wireless electronic devices. The public and industry need these questions addressed as wireless technology and use literally explode. A planning grant (EEC-9526073) was awarded in FY95 to study the feasibility and inability of establishing an Industry/University Cooperative Research Center (I/UCRC) for Wireless Electromagnetic Compatibility at the University of Oklahoma. As a result of this planning meeting, a Center meeting the I/UCRC Program requirements has been established with 14 company members. The Center's research agenda encompasses the following projects: 1.) Mobile Phone RF Enveloped and Power Measurement, 2.) Study of Pacemaker - Wireless Phone Planar Separation (Height of Interaction) Study, 3.) Pacemaker Evaluation using Modified FDA Protocol, 4.) Hearing Aid Phase II-A: Acoustic Measurement with Phones. The Center has been coordinated with Dr. Deborah Crawford, Program Director, Physical Foundations of Enabling Technologies Program, Electrical and Communications Systems Division.